Planning Grant for a Center for Systemic Reform in Science, Mathematics and Technology

ABSTRACT REC 972552 The University of Texas at Austin will accomplish the preliminary planning for a new educational center, called the Center for the Improvement of Science, Technology, and Mathematics Education. The Center, when established, will develop the national infrastructure for research on systemic improvement of science, mathematics and technology instruction. The primary discipline focus would be on the implementation of standards-based instruction, with supporting policy and technology. The planning phase will establish the infrastructure necessary to support the Center. The activities undertaken will include: forging partnerships, within the University and with the state; developing organizational and managerial strategies; establishing sites for implementation activities; and developing a corresponding graduate program. Much of the planning will be accomplished through a series of small conferences, each with a focus on a particular aspect of the Center infrastructure.